SSC: A Summer Science Camp for Southwestern Puerto Rico

The Summer Science Camp (SSC) program will take place on the San German campus of Inter American University of Puerto Rico. The project goal is to provide the foundation for a lidelong interest in science and mathematics to underrepresented minority students in Puerto Rico in the intermediate schools with the objective of encouraging these students to consider science, engineering and mathematics as possible career choices. The program will offer an intensified mathematics and science enrichment program during a five-week period in the summer, and will serve seventy-five (75) students each year selected from area schools. The program will provide instruction in math, computer science, the biological and physical sciences, and in Spanish and English communications skills as related to science. Other program activities include field trips, hands-on laboratory experience, counseling and orientation, seminars, training in study skills, career exploration activities, and motivational activities. A follow-up component will be held during the regular academic year to permit project continuity and increase effectiveness. The participants are expected to be equally divided between males and females and predominantly Puerto Rican. The outcomes of the SSC program will be seventy-five underrepresented students annually in Puerto Rico who will have increased their academic skills, performance and motivational levels to enter and successfully compete with their peers in a science, engineering or mathematics career. ***